RUI: Algebras, Domains and Categories in Computation and Semantics

Algebras and monads, domains and categories provide powerful approaches to various connected problems in computation and semantics. The project employs categories in formalizing the iterative process in fixed point constructions suitable for wide computational interpretation. Questions such as producing a systematic approach to interpreting non-termination and measuring the extent recursion coexists in the presence of powerful closure properties, necessary for semantic interpretation, will be answered. Recent progress in interpreting domains in non-standard models of computation will continue. The objective here is the enumeration of a powerful computation paradigm capable of broad semantic utilization in which notions such as order, continuity and effectiveness are intrinsically defined. An important goal is providing a logical framework that will systematize present work, promote greater accessibility, and point to possible future implementation. The research will utilize algebras and monads to study partial data types and their computations. Utilizing recent success with Kleisli and Eilenberg-Moore algebras, a systematic study of various monadic refinements and their corresponding computation calculi will be undertaken. Connections with other models of partial computation and with work in operational semantics will also be explored.